Skills, Optimism and Growth: A Bayesian Analysis

Most economic activity involves risk and is subject to many unknowns. This is especially the case with economic activities that have the potential for major technological breakthroughs. Because such activities are new and never before tried, there is no past history one can use to assign risks associated with those activities, and therefore no objective measure of those risks. Entrepreneurs must make an assessment of such risks before deciding whether or not to experiment with a particular activity. Two different entrepreneurs may be justified in having different beliefs about the probability of success of a given activity. Some may be very optimistic about the prospects of a given project while others may be very pessimistic. The more optimistic such entrepreneurs are about the prospects of that activity, the more likely they are to try it or experiment with it. Such experimentation in turn is what results in the creation of new ideas and hence in economic growth. On the other hand, skills are also required for entrepreneurship. The more skilled will be more likely to succeed in their experimentation and entrepreneurship. In this work presents a model in which economic growth occurs via the process of experimenting with new goods. The experimentation process depends on the optimism and on the skills of entrepreneurs. The model shows that optimism and skills are often hard to separate because they work in similar ways to produce growth. The model also indicates the possibility of pessimism traps: situations of zero growth, which come about because pessimistic entrepreneurs caught in them fail to try new activities and therefore fail to discover potentially useful projects. Some specific questions addressed are the following: (a) What are the implicit costs of experimentation in terms of foregone current output? In particular, what is the optimal level of experimentation in the economy? (b) Do differences in beliefs/optimism of entrepreneurs act as mutations in evolutionary economics, resulting in a role for differences in beliefs as an engine of economic growth? In particular, can changes (mutations) in beliefs of entrepreneurs be the reason why we consistently escape out of pessimism traps? (c) What may determine the level optimism or pessimism of entrepreneurs? For an idea or new activity to be implemented or experimented with, more is required than just the optimism of the entrepreneur. The entrepreneur typically requires the cooperation of a bank, or the owners of resources, to finance the project. Banks, however, may also be affected by optimism/pessimism. Further, banks may or may not have the required skills to screen projects and finance the truly good ones. I construct an information structure model to quantify bank screening skills, thereby providing a definition of `financial sophistication` and enabling a computation of its effect on growth. I also study the two-sided adverse selection problem which results when both banks and entrepreneurs have biased beliefs (optimism/pessimism) about projects they are evaluating. A natural final question is whether competitive market forces can weed out entrepreneurs and/or banks who hold biased beliefs. I construct a model to determine when the market can indeed weed out such beliefs. Although the market by itself may not weed out such incorrect beliefs, I indicate some types of institutional arrangements that may help.